RAPID: Seamless marine-strandline-wetlands sediments data structure to support decision-making against the Deepwater Horizon coastal oiling

For several years, the PIs have been developing a data system which can represent the
soils "substrates, sediments" of the coastal fringe. They have been devising solutions
to these problems over the last several years by: (a) extending a large marine soils
database to onshore landscapes in the Australian outback, (b) researching the
geologic/ecologic changes in the Mississippi delta region, (c) innovating in making
numerical and linguistic data co-mappable (the heterogenous data problem). The
coastal zone is heavily populated and invested in worldwide. This project will open the
way to a better depiction and understanding of the geomaterial and environmental
patterns over large expanses of the zone. In particular, better availability of data will
improve planning and numerical model performance based on improved inputs and
extended opportunities for validations. In regard to the Deepwater Horizon disaster this
project will immediately provide better information focussed on and supporting the
cleanup and remediation efforts. The project will strengthen the cleanup decision
support systems and numerical models, and will provide a new source of data to work
with the associated research-side scientific mapping and experimental work.